MRI: Acquisition of computing equipment for research and education in computational biology

Through a grant from the National Science Foundation to the Massachusetts Institute of Technology, six faculty members will collaborate in the purchase and use of high-performance computing equipment for research and education in computational and systems biology. The advent of high-throughput technologies in the life sciences has provided many genome sequences, protein structures and biological interaction networks. The amount of such data will continue to grow, compelling the development of rigorous and quantitative approaches to decipher and understand it. Simultaneously, advances in computing technology are enabling new ways of attacking complex biological problems using modeling and simulation. The projects to be supported cover a wide range of exciting areas, including the study of gene and organism evolution, transcriptional and post-transcriptional gene regulation, molecular signaling, protein conformational modeling, protein design, and the analysis of complex networks. The work will lead to advances in computational methods and provide basic biological insights.

This award will support MIT’s active role in developing computational and systems biology in the United States. The university is establishing novel programs and curricula to train students at the interface of the life sciences, engineering and the physical sciences. The investigators on this award are deeply involved in these activities. Shared computing resources will help attract talented students and provide them with modern, cross-disciplinary training. These students, who come from diverse backgrounds, will assume leadership positions in American universities and companies.